Composite Mechanics Laboratory Course

The objective of this project is to familiarize undergraduate students with experimental methods of studying the mechanical properties of composite materials. There is great demand in industry for young mechanical engineers who can deal with the unusual properties of the recently developed composite materials. Traditional mechanical engineering courses have not trained students to deal with the highly anisotropic nature of these materials; i.e., the stiffness and strength properties are highly dependent on the direction load is applied. To teach undergraduate students about the anisotropic characteristics of composite materials, a special course will include both theory sessions and at least eight lab experiments. Of the equipment needed, one major piece is already on hand. The existing static test frame needs to be augmented with the following new equipment: multichannel data acquisition unit interfaced with a PC for the purpose of collecting strain gage data and load signals, a compression fixture, a shear fixture and electronic instrumentation. Full characterization of composite materials requires a determination of the volume fraction of fibers in the material through weighing the fibers in a sample after dissolving the matrix. For this purpose a precision balance is necessary.